Volcanoes of the Abyss

Rutgers University is developing a large-format, scientific, documentary film about the evolving scientific investigation of deep-sea hydrothermal vents. Volcanoes of the Abyss (working title) will be produced in conjunction with Volcanic Ocean Films and produced/directed by Stephen Low. It will examine the communities these vents support and their relationship to the surrounding environment. It also will consider the implications vent discoveries have for our understanding of the evolution of life and our search for life elsewhere in the Cosmos. Much of the filming will be done from on board the Alvin deep ocean research vessel.

The companion Educational Outreach Program will reach students in middle and secondary schools and at the college level. Print-based and web-based material also will be designed for use by families. The film and the outreach materials together will be the basis of a substantive educational effort to inform the public about the intricacies and significance of the fascinating, but largely unknown, ecosystem.